Mathematical Sciences Computing Research Environments

9508403 Slattery The Department of Mathematics, Statistics, and Computer Science at Marquette University will purchase, one Sun SPARC station 20, one Sun workstation upgrade, software, and support staff. These machines will be dedicated to support mathematical research in several projects including 1) Computation in Finite Simple Groups and 2) Computation in Finite Solvable Groups.